Scanning Probe Microscope for Organic Surfaces

ABSTRACT Paul Labinis MIT CTS-9500149 The Chemical Engineering Department at MIT request support to purchase a scanning probe microscope (SPM) with the capabilities to perform high resolution imaging of organic materials and surfaces. The SPM will provide the needed means to interrogate chemical and biochemical interactions at surfaces and to determine relationships between chemical processing, surface structure (composition, roughness, etc.), and surface properties. Its primary application will be to problems involving various organic surfaces, including molecular and multilayer films and fluorinated, polyionic and biocampatible polymers.